National Engineers Week/Discover "E": Reaching out to the Next Generation of Engineers

Abstract EEC-96-27233, National Society of Professional Engineers, Russell C. Jones, Principal Investigator This award provides funding to the National Society of Professional Engineers to help support the 1996,1997, and 1998, National Engineers Week/Discover E : Reaching Out to the Next Generation of Engineers Programs. National Engineers Week is a public outreach program conducted by the U.S. engineering community . Over the last forty years, it has evolved into a popular and highly visible program with a special emphasis on student outreach activities. Understanding that young people can develop positive attitudes about the scientific and technical professions if approached creatively, the National Engineers Wekk Committee has developed a stimulating program called Discover E . The National Engineers Week Committee provides print and audio-visual materials to engineers participating in Discover E Teach-ins and other public outreach activities. Discover E: engineers share a common desire: to help grade school and high school students discover the exciting world of engineering and technology. Their goal is to help students and teachers realize the practical appplications that math, science, and engineering have to the world around them.